Midwestern Wild Weather Project

9815087
Diaz

"Midwestern Wild Weather" is a traveling exhibition designed to reach the target audiences in the small/rural communities and the science centers and museums in the states of Illinois, Iowa, Indiana and Michigan. This is a three-year project to replicate five of a set of nine interactive exhibits on the topic of Wild Weather. This exhibition is being produced in collaboration with SPARC (Springfield, Peoria, Aurora, Rockford and Carbondale) which are cities located in the State of Illinois. The project represents a strong model for collaboration between museums, science centers and the formal educational system.

An innovative feature of this project design is the use of "attractor" exhibits to entice persons to come to the museum and/or science center. "Many places have talked about doing this but few have tried it." Also, this project has the potential to fill the real need of making available quality exhibits to small museums and bringing informal education resources to small/rural communities.

The Science and Technology Interactive Center's cost share for this project is 52.1 percent of the total budget.